Conferences: An International Comparison of Thirteen-year- old Students in Mathematics and Science

This project is for the conduct of an international assessment in science and mathematics of 13-year old students. In 1988, six countries will participate in the assessment (England, Korea, four provinces in Canada, Ireland, Spain, and the United States). Items selected from the National Assessment of Educational Progress (NAEP) will be used to test 2,000 students in each of the six countries. A report of findings showing the relative achievement of U.S. students vs. the other countries will be issued within 18 months of the conduct of the assessment.